Mathematical Sciences: Estimation of Semiparametric Regression Models

The principal investigator will investigate estimation for semiparametric regression models. Such regression models are useful for the analysis of large data sets, for analyzing the data from observational studies, and for pooling information of all relevant data in statistical analysis. The method of sieves and the polynomial spline are used to study the semiparametric regression models. The research will consist of finding an efficient estimator of the parametric component in semiparametric regression models and giving a theoretical justification for a proposed principle to handle semiparametric models.